Research Expereinces for Undergraduate in Particulate Systems Engineering

Research in Particulate systems Engineering in crucial to advances in combustion, atmospheric and environmental sciences, nuclear winter studies, nuclear reactor safety, and materials manufacturing. The purpose of this project is to provide research experiences for undergraduate students in this area. At least half of the students will be selected from institutions other the UMC, with several recruited from Stephens College (a women's college), Lincoln University (HCBU), and other undergraduate schools in the State. Each student will undertake a specific research project, and a faculty advisor (participating in the REU program) will work with the student to develop his/her research skills. An essential element of the program will be its emphasis on professional development of the students (e.g., paper writing and technical presentations). The purpose is to infuse bright undergraduate students with an enthusiasm towards research careers, including graduate level education. The University of Missouri-Columbia has made substantial institutional commitments to the program. These include support of faculty time, waiver of tuition and fees for the student Participants, waiver of all overhead costs, and stipends for two minority students (in addition to those supported by the NSF funds).